US-European Workshop on Bridge Evaluation, Repair and Rehabilitation

This project is a Workshop which is to be held in Europe with bridge engineers from the European community. The objective of the Workshop is to learn various techniques used by the European bridge engineers to extend the life expectancy and duration of the different types of bridges. The Workshop will enable American bridge engineers to exchange information with their counterparts and thus to develop relationships for future cooperation.